Sixth International Symposium on Particles, Strings and Cosmology (PASCOS-98); Boston, Massachusetts; March 22-27, 1998

The sixth International Symposium on Particles, Strings and Cosmology (PASCOS-98) will be held at Northeastern University during the period March 22-28, 1998. The symposium is interdisciplinary in nature and will cover a wide range of topics in particle physics, string theory and cosmology and their interconnections. There will be both theoretical and experimental talks at the symposium. Topics to be covered include: neutrino masses, the dark matter and large-scale structure of the universe, possible future elementary particle accelerators, matter-antimatter asymmetry, the possible new symmetry known as supersymmetry, and string theory. The Symposium will facilitate a very important exchange of ideas among leaders of several fields.